Microfabricated Electrostatic Motor System

The goal of this research is to design, develop, and demonstrate a microfabricated electrostatic motor. The work will apply technologies of microelectronics to the fabrication of mechanical devices, especially an electric motor with a radius of 300 microns capable of 2.4 million RPM. This research will build on the emerging technology of microsensors and could open a new area of microactuators.